Faculty Development Award

This Faculty Development Award supports the effective integration of research, teaching and outreach. The research explores the use of inexpensive spectroscopic techniques in wastewater analysis. The integration of research and education through undergraduate research is also a major goal of the project. The Discovery Corps Fellowship Program supported postdoctoral and professional development models that combined research expertise with professional service. Discovery Corps Postdoctoral Fellows are eligible to apply for this Faculty Development Award.